Travel Grant for Students to Attend The Interanational Symposium on Code Generation and Optimization (CGO)

This proposal requests NSF support to broaden participation in The International Symposium on Code Generation and Optimization (CGO) to be held in Chamonix, France April 2-6, 2011. The International Symposium on Code Generation and Optimization (CGO) is the premier venue to bring together researchers and practitioners working on bridging the gap between software abstraction and hardware execution.
This proposal aims to increase the impact of this conference by enabling participation by studentsfrom US-based institutions for whom travel support would otherwise preclude their attendance.